Transmetalation Reactions Research Collaboration in U.S. and Egypt

Title: Transmetalation Reactions Research Collaboration in U.S. and Egypt ABSTRACT NARRATIVE: Description: This proposal is a request for a second award as a follow-on to a two-year research effort funded by NSF award INT-8512210. The research team from Northeastern University headed by Dr. Geoffrey intends to continue the collaboration with the University of Alexandria, Egypt team lead by Drs. Mohamed A. El-Sayed and Ahmed El-Touky. This collaborative effort has broadened the chemistry discovery relating to the metal exchange in polynuclear materials. The proposed new work will build on the past effort in six important areas including the building of larger and more diverse multi-metal molecules at lower cost; the use of these molecules as sources of new metal alloys and chemical catalysts to be used in still newer systems. Development of the transmetalation phenomenon will lead to the establishment of new areas of study in organic and organometallic chemistry. The purpose of the Science in Developing Countries Program is to advance the exchange of international scientific knowledge and to contribute to the scientific infrastructure of developing countries. This proposal meets those criteria. Scope: These international collaborators are in the process of developing new approaches to handling metals that can very possibly lead to new and unexpected products of unique and useful characteristics for use in both the laboratory and in the public sector. An additional pay-off of this research is the provision of a wealth of learning opportunities for students pursuing degrees in organic chemistry. A final value of this research is the advance of the scientific and technical knowledge of the research teams and their impact within their separate universities. The collaborative work of these scientists from Northeastern and Alexandria universities has resulted already in significant scientific advances and a number of joint publications in major refereed journals.